PostDoctoral Research Fellowship

This award is made as part of the FY 2014 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Tyler L. Kelly is "Exotic Mirror Symmetry Constructions." The host institution for the fellowship is the University of Cambridge (U.K.), and the sponsoring scientist is Dr. Mark Gross.

This award is being supported by funding from the Office of International and Integrative Activities, International Science and Engineering Section, International Postdoctoral Fellowship Fund.